Work-focused Experiential Learning to Increase STEM
Student Retention and Graduation at Two-year Hispanic-serving Institutions

With support from the Improving Undergraduate STEM Education: Hispanic-Serving Institutions (HSI) Program, this Track 1 project seeks to provide students with mentored work experiences in computer information systems. Students will have access to on-campus work experiences and externships in businesses and industries. Examples of potential student projects include mobile application development, cybersecurity, and computer support. It is expected that these experiences will increase undergraduate student interest, persistence, and success in computer information systems, as well as in STEM more broadly. To ensure that they are well-prepared for and gain the most from their work experiences, students will receive training on employability skills such as communication, teamwork, and project management. During their work experiences, students will be mentored by faculty, industry professionals, and peers. To strengthen the capacity of faculty to serve all students, including Hispanic students, the project will provide faculty with professional development focused on equity mindset. The framework to provide mentored work experiences will be developed and piloted at Phoenix College, then expanded to four other two-year HSIs in the region. The project also intends to expand this framework to other STEM fields. Through this work, the project aims to develop a replicable model for how two-year institutions can develop work experiences that foster increased student graduation and entry into STEM career pathways.

This project seeks to examine how a curriculum that integrates cross-sector partnerships to provide work experiences can enhance STEM learning and retention. Using mixed methods and grounded theory, this project will expand knowledge about: (1) the impact of cross-sector partnerships that support work-focused experiential teaching and learning; (2) systematic ways to maintain and better use cross-sector partnerships; and (3) the degree to which a model of work-focused learning experiences can be adopted at other two-year HSIs and by other STEM fields. Expected results of the project include: development of sustainable mechanisms to foster cross-sector partnerships; increased student retention and workforce readiness; and measurable successes for STEM students, particularly Hispanic students, at two-year HSIs. Significant findings and research results will be presented at meetings of the HSI STEM Hub, at conferences at professional societies that support HSIs, and in academic publications. The HSI Program aims to enhance undergraduate STEM education and build capacity at HSIs. Projects supported by the HSI Program will also generate new knowledge about how to achieve these aims.